Conference: Advances in Geometric and Quantum Topology

This award supports a conference on Advances in Geometric and Quantum Topology that will take place at Temple University in Philadelphia during July 13-16, 2026. The conference location and timing are advantageous due to the upcoming International Congress of Mathematicians taking place in Philadelphia ten days later. As a result, the conference will provide an opportunity for US-based and international participants to meet and collaborate. Funding from the NSF will enable early-career US-based participants who do not have their own source of funds to travel to Philadelphia and attend the conference.

The scientific goals of the conference are as follows. First, the conference will provide a venue for sharing new results in quantum topology, geometric topology, and hyperbolic geometry. Second, the conference will increase collaboration and communication among research experts globally. Third, to introduce researchers, especially students and early career researchers, to important problems and areas of current research, with an emphasis problems lying at the interface of quantum and classical topology in three dimensions. Quantum topology contributes to the theoretical framework underlying quantum computing and leads to various applications in quantum science, advancing our knowledge in an area of national priority. This conference has a designated public website at the following address:
https://rabbine-web.github.io/